Participant Support for the First Antarctic Climate Evolution Symposium

This award supports US-participation in the First International Antarctic Climate Evolution Symposium that will be held in Granada, Spain, 7?]11 September 2009. The SCAR (Scientific Committee on Antarctic Research) Scientific Research Programme on Antarctic Climate Evolution (ACE) is a well-known international program established for the worldwide coordination of the paleo climate research. Recent results and opportunities for future cooperation are highlighted, which is timely for Antarctic projects upon completion of the International Polar Year 2007-2009. In terms of broader impacts, this workshop promotes international collaboration, broadens the perspective of U.S. scientists, and provides an opportunity for the next generation of scientists to interact with leaders in the field. This award also provides support for applicants from underrepresented groups, as well as early career scientists and students. Outcomes have societal relevance in understanding global climate change.